Student Travel Support for OSDI 2008

Abstract:

This proposal requests funding to support the travel-related costs of 20 graduate students from the U.S. to attend the Eighth Symposium on Operating Systems Design and Implementation (OSDI) to be held in San Diego, December 8-10, 2008. OSDI is co-sponsored by USENIX and ACM SIGOPS. The eighth OSDI seeks to present innovative, exciting work in the systems area, and will include the 'Women and Minorities in Systems Research' Workshop on December 6-7, 2008.

Particular attention will be paid to directing support towards under-represented minorities including women, African-Americans, Hispanics, Native Americans, and Native Pacific Islanders. The proposal will allow students to be exposed to a premier conference in systems area that otherwise they will not have a chance to attend.